NSF East Asia and Pacific Summer Institute for FY 2012 in Taiwan

This action funds Sarah Morton of University of Connecticut to conduct a research project, entitled "Using seismic techniques to understand soil behavior in response to strong ground motions," during the summer of 2012 at National Center for Research in Earthquake Engineering in Taipei, Taiwan. The host scientist is Professor Kuo-Liang Wen.

The Intellectual Merit of the research project is to further enhance the basis and understanding of geophysical techniques and their application to seismic hazard analysis and soil mechanics.

Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.